Non-Linear 0-1 Programming with Applications to Artificial Intelligence and Flexible Manufacturing (Engineering)

The long-term goals of this research is to advance the theory of nonlinear 0-1 programming, to design efficient algorithms for the main type of such problems arising in engineering and to make largely available the corresponding codes. Further investigations will be undertaken towards the improvement of exact and heuristic solution methods for unconstrained, constrained and hyperbolic nonlinear 0-1 programs, and their application to reasoning under uncertainty in expert systems (probabilistic logic) and to machine load balancing problems in flexible manufacturing. Interactive activities include teaching preceptorial courses on Case Studies in Operations Research and on Integer Programming and giving guest lectures. Additionally, Dr. Jaumard will lead seminars on recent research problems. This project furthers VPW program objectives which are (1) to provide opportunities for women to advance their careers in engineering and in the disciplines of science supported by NSF and (2) to encourage women to pursue careers in science and engineering by providing greater visibility for women scientists and engineers employed in industry, government, and academic institutions. By encouraging the participation of women in science, it is a valuable investment in the Nation's future scientific vitality.